EAGER: Models, analytics, and algorithms for data driven applications

Data driven applications are becoming increasingly prevalent as our ability to collect data continue to increase and the cost continues to decrease. Examples of such applications include social networks (twitter, facebook, etc.), bioinformatics (gene regulatory networks, genomic sequence analysis), and environmental monitoring using wireless sensor networks. As more data
become available, how to convert data to actionable information to guide decision is a pending problem that will have many applications. In addition to being "big", the data and underlying phenomena also exhibit time-variations which add to the
difficulty of gleaning useful information from data. To cope with these challenges, this project will develop an flexible algorithmic framework using Dynamic Bayesian Networks, which can sufficiently describe the physical reality, and at the
same time are expressive enough to allow for machine based learning, optimization, inference and adaptation to dynamical
data. Such a computational framework can assimilate data continuously, adaptively, and reduce the data to information in
a format that is logical, intuitive, and amenable to human interactions.Such features are particularly needed for large-scale,
data-intensive engineering systems and networks such as structural health monitoring, surveillance and disease discovery
using gene regulatory networks.

Intellectual Merit:

The proposed project will build on existing work on graphical models and explore the largely open area of learning dynamical graphical models based on measured data. Algorithms will be developed based on convex optimization formulation for online
adaptation of the graphical models. Partially known structural information, and issues with noisy, incomplete, corrupted,
or missing data will be examined. The proposed research will advance the status of the art of learning from dynamical data,
and explore the many under-explored connections between signal processing, and information theory, statistics,
and machine learning.

Broader Impact: The proposed research will develop generic models and analytical tools for data based applications.
It will also generate low-complexity algorithms that can be adapted to a large number of applications such as
wireless sensor networks, gene-regulatory networks, and genomic sequence analysis. The research will allow data
that are made available through digital technologies to be converted to information automatically by computers,
which can then be understood and acted upon by humans. The educationalgoal of this proposed project is to efficientl
integrate research with educational activities and to train both undergraduate and graduate students in interdisciplinary
areas to produce next-generation engineers. Efforts will be made to invite women, underpresented, and minority undergraduate
students to participate in the proposed research.